A Proposal To Support the Science Student Internship Program (SSIP)

Quality Education for Minorities (QEM) Network, a non-profit organization, has been instrumental in improving the education of under-represented groups that have been undeserved historically by the nation's educational system. As an agent for change, QEM continues to develop effective strategies for broadening STEM participation, and focuses on issues and barriers that prevent minorities from receiving a high quality education. This project supports internship opportunities for students at the National Science Foundation as a mechanism to: increase students understanding of science policy; develop the potential of future leaders and proponents for STEM participation, including students from low-income communities; and promote the continuation of STEM interests and studies through the doctoral level. Complimentary to the internship experience at NSF, students are required to engage in a science-oriented community K-12 outreach activity during the following academic year at their respective institutions.